Undergraduate Engineering in Medical Research

9820538
The Cleveland Clinic Foundation
William A. Smith

This program will recruit advanced undergraduate engineering students from colleges and universities
across the United States, to provide the students with realistic, hands-on research experiences. One
group of eight students per year will be recruited for nominally six month employment terms at the
CCF. Each will select an individual faculty mentor at the CCF, in addition to the PI. They will also
have a home school faculty sponsor. Hiring will be staggered, so that students will have a three-month
term as a junior engineer, and a term as a senior engineer. Upon completion, the students will return to
the homes school, and in collaboration with the faculty sponsor, recruit two students to complete a two-
quarter senior project growing from the CCF experience. Consequently, the participant will
consistently advance in independence and responsibility through three stages, culminating as a project
leader. The CCF will loan hardware, instrumentation, software, and computer access as necessary, to
conduct the home research. The stimulation of the research activity will extend into the home colleges
engineering environment. A total of 114 students will be supported, over the proposed five year
program. Interactions will be among the CCF-based students, with the CCF staff, postdoctoral and
graduate students, with the home faculty, and with home students in and out of the program. An ethics
training component is included. An aggressive recruiting program will increase the participation of
under-represented groups in the program. Similarly, emphasis will be placed on recruiting from
"teaching" rather than "research" oriented institutions. Educational assessment and feedback is also a
significant component. Because of this effort, the CCF will have technology to quantitatively improve
and extend its work, and the students will have been exposed to research in a world class facility. The
participants in the program will model research activity to other members of the student body at the
home school.